A Computer Classroom for the Technical Education of AdvancedUndergraduates in Political Science

This award provides funds to the Political Science Department at the University of Iowa to help purchase equipment to support a computer classroom which takes advantage of the confluence of advances in high speed microcomputers, advances in graphical capabilities for data analysis, and advances in interactive educational software to provide individualized, interactive instruction in quantitative analysis. This approach to teaching undergraduates political science is grounded in the understanding that student interest in technical tools does not emerge in a substantive vacuum; rather, it emerges as an offshoot from a desire to answer a real-world problems posed by the discipline. Both the initial interest in technical knowledge and the subsequent enthusiasm for its utility are intimately tied to the substance of political problems "discovered" by students. Hence, the Department is intent on keeping this technical education in the courses where those problems are in point. The computer classroom should launch many students on an intellectual voyage of discovery, a voyage where their new technical knowledge could permit them to study politics and public policy in ways previously beyond their reach. The grantee is matching this award with non-Federal sources.